Workshop on Clusters, Clouds and Grids for Scientific Computing

As a result of this award NSF will partially fund an international workshop on Clusters, Clouds and Grids for Scientific Computing. This workshop hosts 60 attendees and will take place in the fall of 2010 in North Carolina. The topic is relevant to the cyberinfrastructure for U.S. science and engineering researchers.